International Travel Award to attend Fifth International Congress on Polymers in Concrete - Brighton, England, September 21-24, 1987

This project is a travel award to participate in the Fifth International Congress on Polymers in Concrete Structures.